Intermediate Energy Nuclear Physics with Nucleons and Light Nuclei

The proposal deals with the interaction of photons, neutrinos and electron with few-nucleon systems. One part deals with the properties of the axial vector current and threshold pi-zero photoproduction. A second part focusses on individual transition multiple amplitudes to get information on specific components of few-nucleon wave functions and the nuclear current operator.